International Postdoctoral Fellows Program: Automatic Synthesis of Optimal Controllers

9505943 Sentovich The International Junior Investigator and Postdoctoral Fellows Program enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Ellen M. Sentovich to work with Dr. Gerard Berry at the Ecole des Mines de Paris. The researchers will explore effective computer-aided design tools (CAD)for synthesizing control systems. The study will focus on encoding controllers, optimizing register selection and analyzing combinational cycles. Control-intensive electronic systems employed in a variety of new applications, including automotive, avionic and robotic controlq and communications systems, are difficult to design correctly because they employ a mix of hardware and software components. Furthermore, the design process is complicated by stringent design requirements and time-to-market constraints. State-of-the-art tools are still not capable of producing optimal, correct and complete control systems. It is the goal of this research to combine the expertise of the host engineers, specifying and compiling control-intensive systems, with that of the postdoctoral fellow's logic synthesis and optimization to further the research to create effective CAD tools to meet the design constraints. ***